Symposium LL: Rapid Prototyping Technologies III, held December 2-6, 2002, in Boston Massachusetts

This award provides partial funding for a symposium to be held at the Materials Research Society Meeting, Dec 2-6, 2002 in Boston, Massachusetts. The symposium will address issues of Rapid Prototyping Technologies as applied to biomedical applications, with specific concerns for the materials development for solid freeform fabrication of 3D structures ranging from the macroscale down to the nanoscale. Funding is request for participant support.